International Conference on Computational Harmonic Analysis, May 19-23, 2014

The International Conference on Computational Harmonic Analysis will be held in conjunction with the 29th Shanks Lecture Series, from May 19 to May 23, 2014, at Vanderbilt University, in Nashville Tennessee. This conference will play a crucial role in the development of science and technology based on computational harmonic analysis, identifying new trends, and providing an important common link to other science and engineering disciplines at large. It is intended to highlight computational mathematics and its connections with interdisciplinary research areas, and to bring researchers and graduate students together for in-depth discussions on all aspects of computational harmonic analysis.

This award supports the participation of junior researchers and invited speakers in the meeting. The emphasis of the conference will be on state-of-the-art developments in topics such as compressed sensing, random matrix theory, multi-fractals, time-frequency analysis, sampling and sensing networks, high-dimensional data geometry, frame theory, learning theory, mathematics of imaging, applications to signal/image processing, information technology, natural and life sciences, and engineering.

Conference web site: http://www.math.vanderbilt.edu/~iccha5/